ITR: Imperative Programming with Dependent Types

Proposal Number: ITR-0081316
PI: Xi, Hongwei
Institution: West Campus, University of Cincinnati
TITLE: Imperative Programming with Dependent Types

Programming is notoriously error-prone. As a consequence, a great
number of approaches have been developed to facilitate program error
detection. The proposed research intends to enrich practical imperative
programming with a type discipline that allows for specification and
inference of significantly more precise information on programs than
those enforced in languages such as Java and Standard ML. The primary
motivation for developing such a type discipline is to enable the
programmer to capture with types more program properties such as
memory safety and then enforce these captured properties through
type-checking. This practice allows for detecting more program errors
in less time. Another motivation is to use the type discipline to
generate memory safety proofs for low-level code and thus effectively
produce proof-carrying code that asserts its own memory safety. In
short, the research studies a type discipline for practical imperative
programming at both high and low levels, aiming for producing software
that is not only more robust to run but also less costly to maintain.